REU: An Aeromagnetic Survey of the Northern Juan de Fuca Ridge and the Sovanco Fracture Zone

This is a project to study the Northern Juan de Fuca Ridge using high-density aeromagnetic data. Approximately 2600 sq. mi. were covered at a track spacing of 1 nm. during a survey performed by the Canadian government in 1986. The area included the Endeavor and West Valley segments, the Middle Valley and the Heck and Heckle seamount chains. The analyses of the magnetic data will address a number of scientific questions. Among them are the variation of the Central Anomaly Magnetic High along strike of the Endeavor Segment, thermal or alteration demagnetization of the crust in the high-temperature sedimented Middle Valley, and magnetization of the Heck and Heckle Seamounts. To constrain the forward modeling, magnetic property determinations of existing samples will be made. The PI will also perform forward modeling of the magnetic signature of the 10-15 km scale blocks located in the Sovanco Fracture Zone in order to determine whether competing hypotheses for the nature of these blocks can be resolved by high-density magnetic data. These studies are important for determining the cost effectiveness of high-density aeromagnetic data as a tool for marine geophysical studies. The sites chosen for study are important because the data will help us understand how small tectonic plates evolve near a subduction zone.